The Tenure System in Engineering

The Tenure System in Engineering
Roli Varma
University of New Mexico
This proposal studies the importance of the tenure system in engineering in institutions of higher
education. The tenure system distinguishes the academy from other forms of professional work.
However, the rapid reduction of tenure-track positions and the rise of part-time and non-tenure
track positions has reduced the importance of the tenure system. Most importantly, the tenure
system has become a controversial subject that passionately divides scholars between those who
argue for maintaining the system and those who argue for eliminating it. The proposal focuses on
engineering because it makes an interesting case study of the technical system and human values.
This is primarily a qualitative study based on in-depth interviews with 15+ subjects. This
sample includes 10-12 engineering faculty who are tenured and on tenure-track, female and
minority faculty, and faculty who are in their terminal year from one public university and one
private university. The sample of tenured and on tenure-track faculty will be drawn randomly
where as the sample of female and minority faculty and the faculty in their terminal year will be
selected via snowball sampling method.
Intellectual Merit
Engineering is one of the best disciplines in which to illuminate the underlying roles of the
tenure system that go beyond the traditional justification of academic freedom. Engineering, as a
technical field, is unlikely to investigate those problems that result in deep-rooted prejudice and
intense emotional reaction for which tenure has been justified. Yet engineering design is a
decision-making process in which technical knowledge is applied to convert resources into a
socially required product. Engineering design implies some understanding of the structure of
society, social organizations, work environment, peoples safety, and protection of the
environment. Furthermore, engineering deals with technologies that have profoundly
transformed society since World War II. Most importantly, engineering faculty increasingly
collaborate with industry which undermines the traditional notion of academic autonomy. In
other words, engineering is not really value neutral as proclaimed. An investigation into
whether engineering faculty involved in social and political questions relevant to the university
face challenges during the tenure process, whether the engineering faculty with industry s links
have a competitive edge in securing tenure, and whether women and minorities face additional
hardship in tenure promotion in engineering, will show the underlying relationship between
technical and social systems.
Broader Impact
This is a pilot study; findings from this study will result in a full proposal to the NSF on August
1, 2006. In probing the importance of tenure to academic personnel, it is likely to illuminate
structures of status and opportunity in academia. It will also show the ways in which the
supposed political neutrality of engineering is constructed despite patently social and political
views held by engineering faculty. It will provide data for social scientists concerned with social
equity. This project also has great potential to contribute to undergraduate teaching; the findings
can be incorporated in future teaching. It is especially important because engineering students are
in great need of understanding the social and political dimensions of their own curricular and
disciplinary worlds.